2001 Atomic Physics Gordon Conference

This award supports student and postdoc attendance at the fifteenth Atomic Physics Gordon Conference that is being held at Williams College from June 17 to June 22, 2001.